Switching and Routing for All Wireless Multi-Beam Ad-Hoc Networks

The use of multi-beam antenna arrays for transmission and reception allows wireless units to send and
receive tens of beams in different directions and using multiple frequency bands. If we deploy a large number
of such multi-beam wireless units over a large area, we obtain a highly connected and high capacity wireless
network. We call this the All Wireless Network (AWN).
Analogous to Dense Wavelength Division Multiplexing (DWDM) in All Optical Networks (AON), we
propose an analogous Frequency Division (FD) and Space Division (SD) technique for All Wireless
Networks (AWN). Unlike point-to-point connectivity of an AON, we argue that massively parallel number of
beams with flexibly assigned direction and frequency from wireless multi-beam units can provide unlimited
connectivity and bandwidth. We rely on spatial parallelism to achieve an extremely high network throughput.
An AWN can be arranged as a spatially distributed multi-stage circuit switch or a fully connected ring,
allowing multi-rate and multi-cast capability of a parallel and spatially distributed switch fabric. A single
multi-beam wireless unit can receive from multiple beams to achieve a Gigabit per second throughput for an
application. The wireless unit can also serve as relay nodes to switch incoming beams of given direction and
frequency through a switch fabric onto outgoing beams of different direction and frequency. This is analogous
to all optical switching for DWDM in an AON, except we have an added dimension of free and continuous
spatial connectivity, rather than fiber-to-fiber connectivity.
We shall devise switching and routing theory and techniques for SD/FD circuit switching over AWN,
taking into account co-channel and adjacent channel interference and various fading factors. We formulate
metric for routing that accounts for power consumption, distance covered, and externality induced to other
routes. We study social optimality versus individual optimality for such routing techniques.
Using the OPNET software package, we shall implement a simulation of the AWN. The transmitted
radiation pattern is modeled for each wireless multi-beam unit. We distribute many such units over an area,
either randomly or using various wireless interconnection network topologies. Propagation barriers are also
modeled. The graphical simulation provides estimation of power and interference level. Various power control
and routing protocols will be tested using the simulation software.
Theoretical and simulation results will be used to design an Internet Circuit (IC) Router. Routing and
switching algorithms will be made distributed with a multiple -path connection set-up using a link state routing table, or using source initiated connection requests. We plan to implement a simple IC Router for the
internetworking of wireless multi-beam units for concept demonstration.
We believe that the proposed AWN architecture shall be low cost, high performance, and highly flexible
for traffic pattern and link/node impairments. The high throughput of the AWN will allow high quality
multimedia applications to be delivered on-demand entirely by wireless communications.